Theory of Strong Field Processes with Ultrafast Pulses

The research focuses on the study and control of strong field processes via the application of a variety of ultrafast laser pulses, including attosecond pulses, intense high harmonic pulses, and few cycle pulses in the infrared and mid-infrared wavelength regimes. The short duration of the pulses and the strength of the applied fields mean that accurate calculations require a nonperturbative solution of the laser-matter interaction, which is achieved by direct integration of the time-dependent Schrodinger equation. All of the calculations envisioned are directly relevant to ongoing collaborations between the principle investigator and three experimental groups at the forefront of strong field physics.